Acquisition of a Computer System for Wiener Systems

This proposal requests funds to obtain a computer system that is capable of performing an analysis of the response of the vertebrate retina to stimulation by white-noise. The responses will be viewed from several aspects in several projects. Signal transduction in the neuronal network of the catfish retina will be analysed both functionally by microelectrode recording and morphologically by determining synaptic connections with the electron microscope. Cell form and function will then be compared by the computer. In addition, the interaction between retinal cells during light or dark adaptation and under pharmacological stimulation will similarly be determined during stimulation by white-noise. Lastly, white-noise modulated light signals will be used to determine the full range of frequency response of the human cone cell system.